Model Theory and Differential Equations

These research projects address problems in the model theory of
differential fields and the model theory of the field of real
numbers with exponentiation. The model theory of differential
fields is a fascinating area requiring a sophisticated mixture of
ideas from stability theory, differential algebra and algebraic
geometry. The work of Buium and Hrushovski has shown that these
ideas have important consequences in Diophantine geometry. In
particular, the principal investigator will study the model
theoretic behavior of solution sets of families of algebraic
differential equations. This line of research on the model
theory of the field of real numbers with exponentiation is
expected to concentrate on the relationship between global
solutions to differential equations at infinity and formal
solutions in the field of logarithmic-exponential series.

Model theory is a branch of logic that explores mathematical
structures such as the real numbers together with their
arithmetic operations and ordering relation, analyzing the degree
to which the basic rules or axioms for a collection of objects
and their operations determine the shape of that collection. The
methods and results of model theory are cast in terms of
definable sets and functions, where a construction is definable
exactly when it can be expressed by first-order logical formulas
in the language of the structure. Model theoretic methods for the
field of real numbers with exponentiation have been remarkably
successful in proving new results on the geometry of exponential
varieties and sets defined from them. This work has already found
applications in asymptotic analysis, control theory, microlocal
analysis, and neural networks. The model theory of differential
fields has had significant applications in number theory.